A Conference Session on New Field Research Guidelines for Vertebrate Animals; Rockefeller University, NYC; October 8, 1987

Current national policy requires wildlife investigators to submit research protocols that involve vertebrate animals to institutional Animal Care and Use Committees (ACUCs) for review of animal welfare concerns. As of fall 1987, criteria for this review will include research guidelines on mammals, birds, amphibians and reptiles, and fish, under development by professional field research societies. This conference session provides a unique opportunity for representatives of the societies and ACUCs to meet to 1) make known new wildlife guidelines to the people who will be using them, 2) help familiarize current ACUC members (who are mainly laboratory animal investigators) with field research needs, 3) address ethical comparisons of the study of wild and laboratory animals, and 4) help educate field investigators to the institutional committee review process. Conference participants will be ACUC members, field and biomedical researchers, veterinarians, and ethicists. The conference is organized by the Scientists Center for Animal Welfare in cooperation with Rockefeller University. The proceedings will be published. This project provides an important and cost-effective forum for discussion and dissemination of information on animal research ethics. The investigator, panelists, organizational auspices, and dissemination plans are excellent. Support in the amount of $14,227 is granted.